CRPA Biographical Videos of Black, Hispanic, and Native American Female Faculty: Voices of the Few

This Communicating Research to Public Audiences (NSF 03-509) project is based on the PI's current NSF award: SBE-0545361- ADVANCE: Determining national science faculty demographics in order to empower women and guide solutions. This project will help address the need for underrepresented female faculty as role models and mentors in science and engineering. Although the number of female under-represented minority students (URM) in college has been increasing, there are astonishingly low numbers of female URM faculty in each science discipline. This project would produce a series of female URM faculty biographical videos to substitute for the lack of personal contact young women have with these role models. The videos would be widely disseminated through schools, colleges, and minority serving organizations to reach young women.